Symposium: Respiratory and Ionic Aspects of Acid-Base Regulation in Insects, Vancouver, British Columbia

Requesting funding for a one-day symposium on "Respiratory and Ionic Aspects of Acid-Base Regulation in Insects" to be held at the American Society of Zoologists 1992 meeting in Vancouver, with the proceedings to be published in American Zoologist. This will be the first symposium held on insect acid-base regulation, and will unite researchers from a diversity of fields in an emerging area of physiology. The symposium will use a multidisciplinary approach to consider: (1) variation in acid-base epithelial transport mechanisms and their hormonal control among insect tissues, (2) variation in acid-base epithelial transport mechanisms among insects living in aquatic and terrestrial environments, (3) contributions of metabolism and nitrogen excretion to acid-base regulation, (4) biomechanics and control of ventilatory carbon dioxide release, (5) acid base effects of discontinous ventilatory release of carbon dioxide, and (6) the integration of acid-base regulation with other physiological processes. This comparative approach will aid in the development a integrated model of insect acid-base regulation.